The Upgrade of a DEC Microvax II to an Undergraduate Labora-tory Teaching Tool.

Under this project, the principal investigator will upgrade an existing DEC Microvax II to provide an undergraduate teaching laboratory. With the addition of a 159 megabyte disc, port selector, and upgrades to existing Rainbow terminals, sixteen students will be accommodated. Three upper division courses, Operating Systems; Assemblers, Compilers and Translators; and Computer Graphics will be served by the upgraded laboratory. In addition to the formal courses, the laboratory will provide a base for experimentation by an undergraduate student research group doing research on modeling and cognitive science. Among the experiments planned for research are neural network simulation, pattern recognition of video frames, and Sejnowski's Nettalk experiment. The intent will be to create hypothetical neural structures and then examine their performance.